Electrochemical Electron-Anion Exchange

PART 1: NON-TECHNICAL SUMMARY

Lithium-ion batteries have been a dominant technology in portable electronics and vehicles, but further developments in batteries require the exploration of alternate approaches. This project takes a divergent approach to battery materials by exploring exchange of ions other than lithium. Specifically, this research explores the exchange of anions, which, so far, have received little attention. To provide fundamental understanding into the use of anions, this project seeks to discover materials that can transport and store anions. In addition, the project seeks to understand the mechanism of anion movement. The project uses computational predictions of anion movement to aid materials discovery. In addition, the project experimentally validates these predictions through materials synthesis and characterization. By combining computation and experiment, this work provides a deeper understanding of new types of materials that will ultimately impact society by improving electric vehicles and portable electronics. The project advances education and diversity by involving underrepresented students in the research and by teaching the broader public about the scientific discoveries made in this research through several outreach programs.

PART 2: TECHNICAL SUMMARY

This proposal develops a fundamental understanding of electrochemical electron-anion exchange, a process in which the electrons in a material are replaced by anions under electrochemical control. This exchange process has not been studied previously but has the potential to yield batteries with favorable characteristics. This research project combines data mining and predictive modeling, synthesis of new materials, and advanced characterization toward the objectives of: (1) identifying design rules for materials that can exhibit electrochemical electron-anion exchange, (2) understanding how composition and structure influence the rate of anion diffusion, and (3) understanding how composition and structure influence the rate and mechanism of electron diffusion. These three objectives will provide fundamental understanding into a new class of materials, both in terms of their structure and dynamics. This new understanding will accelerate the development of future classes of batteries and other electronic devices. This project is also improving scientific education by developing several programs. These include: (1) an outreach effort to increase the number of undergraduates from HBCUs who apply to graduate school, (2) involving underrepresented undergraduates in this research project, (3) creating a new writing program to give graduate students instruction on the writing of scientific manuscripts and grants, (4) engaging children and the general public in the research on 2D materials through hands-on demonstrations, and (5) involving high school students in the research, especially those from underrepresented populations.